International Workshop on Advances in Predictive Modeling

ABSTRACT
International Workshop on Advances in Predictive Modeling
Project Summary, NSF Proposal # 0401013

A workshop for advancing the understanding of composite materials is proposed with an emphasis on modeling, analysis, and design of advanced fiber-reinforced composites (FRCs). The workshop is to be held in the US in September 2005. The following research areas are cited as areas ripe for discussion and possible workshop topics: (1) microstructure designed, optimal design and computer-designed materials, (2) micro-architectured materials, (3) nano-technology and nano-structure designed materials, (3) MEMS and smart materials, and (4) information technology materials. Technology gaps in modeling FRCs through the continuum of their length scales will be addressed; from individual fibers (micron level) to test coupons (centimeters) to complete structures (tens or hundreds of meters), extant models do not fully capture FRC behavior. The format of half-day plenary sessions followed by afternoon workshops offers a venue in which substantial progress can be made in gaining an in-depth, physics-based understanding of composite material behavior.

PIs: Lt Col James M. Greer, Jr., Ph.D., P.E.
Maj James P. Solti, Ph.D.
USAF Academy CO
(719) 333-3618

Prof. Peter W.R. Beaumont, D.Sc.
Cambridge University, UK